Theory of Solids/Electronic Structure

9630452 Kohn This grant supports the work of a senior, emeritus PI with a long record of distinguished contributions to the theory of materials. The grant contains work in three different areas: The first project contains further development and applications of O(N) computational algorithms for general many atom problems. It also includes work on the inclusion of Van der Waal's forces and of time dependent response in the local density functional calculations. In the second part consists of the study of dynamics of Hamiltonian systems subject to finite time-periodic perturbations. The third project includes continuation of PI's work on atom- surface interactions and properties of Copper-Gold alloys at finite temperatures. %%% This grant supports work by one of the founders of the modern many-body materials theory. After a wonderfully productive career spanning over 40 year, the PI continues to be an active participant in detailed research in many-body theory. The proposed work includes further exploration and application of sophisticated computational methods devised recently by the PI. It also includes a proposal to consider a long-standing mathematical problem in the response of systems to time dependent forces. This work, like much of the prior work of the PI, is timely in bridging the gap in system sizes between small devices and the largest size that the computers can reliably handle. ***